1997 and 1998 Albany Group Theory Conferences

9704857 Turner This award provides partial support for the ninth and tenth annual SUNYA Topology and Group Theory conferences, October 10-12, 1997, and October 9-11, 1998, near Albany, New York. The conferences concentrate on combinatorial group theory and low dimensional topology. The invited speakers in 1997 are David Epstein, Steve Gersten, Misha Kapovich, Ravi Kulkarni, John Meier, Alexei Miasnikov, and G. A. Swarup. It is axiomatic that algebraic topology draws heavily upon group theory, but one charm of the subject of these conferences is that the flow is substantial in the other direction, with topology repaying its debt in shedding light on the properties and structure of groups. ***